Electric and Magnetic Fields in Interaction with Insulating and Conducting Deformable Solid Continua

This project is to study the interaction of electric and magnetic fields with deformable solids. Two distinct areas will be investigated, namely, electroelastic interactions and biasing effects in piezoelectric devices and deformable semiconductors. It is planned that procedures that have been developed and shown to be very accurate in the calculation of the acceleration sensitivity of acoustic surface wave resonators be applied to high precision crystal resonators.